Dynamic Game Theory and Learning

9711885 Smith This research makes methodological and substantive contributions to dynamic game theory and learning theory. It seeks to attain unmet goals of explaining observed features of bargaining - offers are concessions, timing of offers is unrestricted, the process itself is a war of attrition - in a perfect information framework. It achieves a characterization of the "recursive" sequential equilibrium payoff set, and later a folk theorem for games with hidden actions and no summary public statistic. It pushes as far as possible the methodology introduced by Abreu, Pearce, and Stacchetti of reducing a dynamic game to a one-shot "auxiliary game." It explores a new conjecture about optimal experimentation - that information demand is quasiconcave in the posterior beliefs. The model offers a simple framework for exploring the stochastic evolution of research expenditures on a given project. It is conceptually similar to both game theory projects in the attempt to understand intertemporal dynamics by carefully analyzing the cross-section of possible continuation "games." Understanding the dynamics of private information is one of the single most important outstanding problems facing game theory and, to a lesser extent, contract theory. This research will open up a very large class of models that economists currently simply cannot solve. It also offers a simple and substantive new pure theory of dynamic R&D founded on dynamic experimentation.